CAREER: Robust and Resource-Efficient Multiuser Communications for Emerging Digital Networks

This research is a study of fundamental issues arising in multi-user communications in environments subject to severe interference and/or noise conditions. Important applications include mobile, indoor, and PCS wireless systems and two-way hybrid-fiber coax (HFC) networks for broadband services to the home. The research addresses three broad topics: (i) optimum and near-optimum demodulation of multiple-access signals, (ii) the influence of interference and communications techniques (e.g., modulation, demodulation, coding, power control) on system capacity, and (iii) robust multi-user detection and interference suppression. These topics address important challenges to practical realization of high-performance multi-user communications in wireless, HFC and other environments.